CIF: Small: Optimized Receiver Design Integration for Diversity and Cooperative Transmissions Beyond Belief Propagation

This work develops a novel receiver methodology to integrate signal detection and forward
error correction in multiple-input-multiple-output (MIMO) communications and various diversity
transmissions. Moving beyond traditional approaches relying on belief-propagation, this
investigation into the rather classic open problem of integrated signal detection and decoding
involves novel joint optimization formulations that incorporate binary field parity constraints
imposed by the low-density parity check within maximum likelihood detection frameworks for
unified optimization. This novel framework is general and encompasses a number of practical
transmission models, including distributed antennas, opportunistic cooperative networking,
and signal retransmission as well as their integrations. This project has broad impacts on
engineering, education, and society. Its success can lead to new research directions, new
tools, and results to help advance other science and engineering fields.

Focusing on multicarrier MIMO signal reception, the investigators will develop and optimize
integrated receivers for important wireless network diversities including distributed
transmissions, cooperative MIMO, and hybrid-ARQ retransmission systems. The new design
methodology emphasizes integration of multiple constraints from incompatible fields. By
reformulating and relaxing joint detection and decoding problems into convex optimization, the
investigators will design high performance receivers that are efficient and are robust to various
forms of uncertainties in channel state information. Such a novel approach to receiver design
integration represents a fundamental and practical design paradigm that can fully utilize
various a priori signaling and code constraints for joint detection and decoding against channel
distortions and other non-idealities to achieve high performance, efficiency, and reliability. The
research findings can contribute practically to improvement of future wireless services and
broaden their applications in many practical fields where quality, efficiency, and distributivity
concerns are paramount.